Rural Systemics Initiatives in Physics

9713025 Pillai This project will provide a cadre of rural high school science teachers with college-level coursework in physics. As a consequence, the teachers will be able to earn state certification to teach physics at the high school level. The PI will direct the curriculum over two academic years to allow the teachers to take the courses while continuing to teach their regular classes. The courses will be structured to provide the teachers both physics content and pedagogy for teaching high school physics in both the classroom and the laboratory. The project will involve 20 teachers in the poor, rural service area of Mississippi Valley State University. The project is in itself not systemic, but is a teacher enhancement model. It can, however, further systemic reform efforts in the area. ??